GOALI: Modeling, Analysis and Control of Advanced TechnologyEngines

9631237 Grizzle This proposal describes basic research in the modeling, analysis and control of advanced technology, spark ignition engines. The goal of the research is to develop, adapt and apply system theoretic notions to the problem of reducing emissions in automobile engines while meeting performance and drivability requirements. Federal regulations are driving the development of advanced engine technology to meet the ever increasing demands for lower emissions. These engines are fundamentally described by nonlinear, hybrid (mixed continuous and discrete time) mathematical models, and require sophisticated control systems for their proper functioning. The PI will partner with engineers at Ford in order to have access to engine dynamometers for collecting the data required to construct and validate the engine models, and for evaluating modern, model-based feedback design concepts. This is a unique university-industry cooperative research arrangement for developing and applying advanced system theory and control methods to problems important to society. ***